Presidential Young Investigator Award

Professor Christopher Henley has been given a Presidential Young Investigator award to study dynamics in disordered systems. He will be investigating the connections between various kinds of disorder and work toward bridging the gap between macroscopic, statistical physics, and microscopic interactions in various systems.